Workshop on Tissue Engineering

A workshop on Tissue Engineering is proposed for February 26-29, 1988, to be held at the Granlibakken Conference Center in California. The participants will be limited to approximately 60, including 24 invited speakers and discussants who have established programs in the field. An additional 12-16 participants will be drawn from industry based on responses from announcements sent to the research directors of 200 pharmaceutical or biotechnology companies with possible activities in the area. An additional 10-12 participants will be drawn from agencies with programs that are related to the subject matter of the workshop. The growth and maintenance of functional tissue for use in repair of injured tissue, as a replacement for tissue loss in degeneration or as a means of therapy where tissue implants can alleviate an adverse medical condition is a rapidly evolving field. The workshop will evaluate the current status of research in this field over a range of disciplines from fundamental cell biology to analytic engineering approaches to production of tissue or materials useful in new tissue induction. The specific areas to be considered will include but not be limited to cell biology and cell and tissue culture, developmental physiology, surgical needs, skin replacements, vascular replacements, microcirculation development including angiogenesis and angiogenic factors, cartilage and bone, muscle including cardiac muscle and pancreas and kidney. The workshop will consist of a short opening session followed by two complete days of sessions, and discussion summaries, will be published within 6 months of the workshop as part of the series: UCLA Symposia in Molecular and Cellular Biology. This will make the content of the meeting generally accessible to the community. Drafts of session summary discussions and a recorded tape of the discussions will be sent to the sponsoring agency immediately after the workshop.